Collaborative MRI: Development of Geophysical Earth Observatory for Ice Covered Environments (GEOICE)

Intellectual Merit:
The ice dynamics and tectonic history of Ice-covered regions are poorly understood. Scientific investigations of these regions are hindered by extreme weather and complex logistical support. The PIs propose development of a new, rapid deployment, dense footprint, seismic observatory for ice-covered regions, the Geophysical Earth Observatory for Ice-Covered Environments (GEOICE). This seismic array will provide increased observational capabilities and logistical efficiencies needed to seismically image the structures and dynamic behavior of both the solid Earth and overlying ice in remote ice-covered regions. The GEOICE's components will be designed to withstand icy and/or wet environments and require minimal logistics. Research enabled by GEOICE includes: ice mass and sea level changes, solid earth structure, tectonics and ice sheet stability, and deep Earth structure and processes.

Broader impacts:
GEOICE will provide a community tool for achieving a better understanding of the Earth's rapidly changing polar and ice-covered regions. The Intergovernmental Panel on Climate Change's 2007 report concluded that poor understanding of glacial dynamics prohibits robust estimates of future sea-level. GEOICE will enable research that helps address this societally relevant issue. Simplified logistics enabled by GEOICE could lower the technical and logistical barriers that hinder young investigators in the polar regions.